High-Tc Superconductivity Information Center

9422259 Mitra The Superconductivity Information Center (SIC) was established at Iowa State University in 1987. The Center responds to individual inquiries in the field of superconductivity, sends news flashes, and publishes a bi-monthly newsletter, High-Tc Update, which is distributed internationally, without charge, as hard copy, electronic mail, and downloadable files. The Center has approximately 2500 subscribers of which 2000 are in the USA. The Center serves the scientific community by providing rapid, timely, and informal research results concerning superconductivity. %%% The Superconductivity Information Center (SIC) was established at Iowa State University in 1987. The Center responds to individual inquiries in the field of superconductivity, sends news flashes, and publishes a bi-monthly newsletter, High-Tc Update, which is distributed internationally, without charge, as hard copy, electronic mail, and downloadable files. The Center has approximately 2500 subscribers, of which 2000 are in the USA. The Center serves the scientific community by providing rapid, timely, and informal research results concerning superconductivity. ***